RUI: Hadronic Structure and Lattice QCD

Theoretical research in elementary particle physics will attempt to further elucidate the structure of particles which interact via the strong nuclear force. The technique to be used replaces the space - time continuum by a discrete lattice of points. Some of the calculations will be aimed at testing the reliability of this technique. Since the technique is in wide use in a number of applications, this test is important. Clearly, so too is the effort to better understand the structure of the particles.